Linkage between Patented U.S. Technology and U.S. Science

9411378 Narin The proposed research will examine the relationship between patented US technology and US science through an analysis of references cited on US patent grants in 1987/88 and in 1992/93. Hypothesis testing will be used to determine if the preference for citing US references on US-inventor patents is increasing, whether a significant amount of the citation pertains to very fundamental research, the source of the research funding, for example from NSF and NIH, whether citations are concentrated in specific science dependent technologies, how rapidly science linked technologies are growing, and whether there is a geographic dependent preference in the citations. ***